CAREER: Integrating the chemistry and biological organization of neuroactive alkaloid biosynthesis

Plants are an invaluable source of bioactive molecules that are important for agriculture, biotechnology and medicine. The results of this project will benefit the U.S. bioeconomy by delivering new engineering strategies for producing valuable bioactive molecules from clubmosses, including molecules with potential to treat Alzheimer’s disease, diabetes, and depression. Additionally, this project will reveal fundamental principles in plant cells that will more broadly contribute to the development of new approaches for engineering in plants. Beyond research, this project will leverage the historical and contemporary importance of plant chemistry as a mechanism for STEM outreach and education across multiple communities, ranging from high school students to college undergraduates and academic researchers.

Plants produce countless bioactive molecules that are critical for plant fitness and important for medicine and agriculture. However, the ability to engineer valuable plant metabolism is challenged by limited knowledge of the biosynthetic enzymes, their metabolic organization within plant cells, and the role of auxiliary proteins in enhancing pathway flux. This project will explore these phenomena through the study of Lycopodium alkaloids from medicinal clubmoss plants (Lycopodiaceae family). Despite 400 million years of divergence, distant clubmosses share a core Lycopodium alkaloid biosynthetic pathway. By leveraging this evolutionary conservation, preliminary comparative transcriptomic analyses revealed a) multiple enzymes that build distinct alkaloid scaffolds, b) transporters that contribute to metabolite movement among organelles and cells, and c) auxiliary proteins that optimize pathway reconstitution in plant cells. Through the following aims, this project will build on these results to develop a systems-level understanding of Lycopodium alkaloid metabolism in clubmosses. Aim 1 will assess how distinct alkaloid scaffolds are generated from a core pathway through unusual enzyme-mediated catalysis. Aim 2 will explore how biosynthesis is organized in clubmosses by characterizing novel transporters and by assessing the enzyme localization across organelles and cell types. Aim 3 will determine the function of yield-boosting auxiliary proteins that have not previously been described in plant metabolism. Collectively, this project will illustrate how complex biosynthetic processes are coordinated to produce a myriad of bioactive molecules in a multicellular system. This work is expected to contribute fundamental knowledge that will facilitate the development of metabolic engineering technologies for high-value plant-derived molecules.